Games, Time, and Probabilities in Model Checking

PI: Henzinger, Thomas
Proposal Number: 9988172
Institution: University of California-Berkeley

Abstract

Model checking is a method for determining automatically if a computer system
meets its requirements. Prompted by its successes in the hardware industry,
model-checking techniques have been developed for analyzing requirements of
distributed and embedded systems that go beyond classical safety and liveness
properties. These richer requirements include game properties, timing
properties, and probabilistic properties. All three classes of properties
have in common that the underlying system model is no longer the Kripke
structure, but a structure equipped with multiple players (the game graph),
with clocks (the timed automaton), or with probabilities (the Markov decision
process). While these three structures are reasonably well-understood, and
corresponding model-checking tools have been implemented, any combination of
the three features --games, time, and probabilities-- gives rise to genuinely
new phenomena.

First, consider the combination of games and probabilities. The resulting
model of a system is the concurrent game, where the players choose, in each
configuration, their moves simultaneously, independently, and possibly at
random. We develop algorithms for solving concurrent games, in order to
improve the compositional (divide-and-conquer) approach to model checking.
For example, game-theoretic methods facilitate the early detection of error
scenarios, and the automatic synthesis of environment assumptions for system
components. Second, consider the combination of games and time. The
resulting model of a system is the timed game, where the players choose, in
each configuration, their moves together with delays that indicate when the
moves are played. We develop algorithms for solving timed games in order to
provide a method for synthesizing software controllers of physical plants.
Third, consider the combination of time and probabilities. The resulting
model of a system is the timed probabilistic system, where in each state,
every enabled action has associated with it both a probability distribution
over successor states and an expected delay before the state transition
occurs. Timed probabilistic systems permit the analysis of performance and
reliability properties. We develop a temporal-logic framework for
classifying performance properties and practical (iterative) algorithms for
their analysis. Finally, the combination of games, time, and probabilities
results in timed concurrent games. We study define and these systems in
order to facilitate the compositional analysis of real-time systems and the
automatic synthesis of randomized controllers.

The algorithms developed in this project are implemented in the
model-checking environment Mocha and applied to case studies from
component-based design (compositional model checking), embedded systems
(controller synthesis), and network protocols (performance evaluation).